Thrusting Sequence in Central Utah Foreland From Deformationof Syntectonic Basin - Margin Conglomerates

This study will combine stratigraphic and structural mapping and palynological analyses to obtain the detailed movement history of individual thrusts in the Sevier orogenic belt of central Utah. Timing of the inception of the Sevier thrusts is presently unconstrained. Conglomeratic sediments were deformed syndespostionally by thrusts, and these conglomeratic rocks can be traced laterally into pollen-bearing fine-grained sedimentary rocks. Thus the timing of thrust inception can be obtained. The results of this study will improve our understanding of the early stages of thrust belt development in the Sevier orogen, and also in other tectonic environments.